Neighborhood Retention Following the Northridge Earthquake

9416196 Stallings This project is being funded as part of the National Earthquake Hazards Reduction Program's investigation into the causes and effects of the January 17, 1994 earthquake. The project will identify a purposive sample of neighborhoods which experienced concentrated damage from the earthquake and explore the process of recovery by examining existing data on damaged structures and conducting personal interviews with both probability and nonprobability samples of key participants in the recovery process including tenants, apartment and commercial building owners, housing officials, and officials from relevant federal agencies. The study will contribute to a better understanding of the revival of urban neighborhoods following a major urban disaster and suggest how federal and other government disaster recovery and mitigation policies might be rewritten to facilitate the retention of extensively damaged neighborhoods by removing the unintended consequences accompanying policy implementation. ***